Real-time Estimation and Control of California Freeway Traffic

0085739
The project will:
* Estimate and predict travel times between any two points and the corresponding shortest path;
* Calibrate the PARAMICS and possibly, CORSIM, micro-simulation models;
* Develop and evaluate a ramp metering policy based on the calibrate model.

The primary sources of data consist of data from Orange County and Los Angeles County. The
Communication and database infrastructure for collecting, storing and processing data is in place and operational.

The simulation models will be calibrated with data from the two counties. The ramp metering policies will be tested and evaluated through simulation. The most promising strategies will be selected for field implementation.

This research effort will be devoted to network state estimation and prediction algorithms, calibration of simulation models, and design/evaluation of ramp-metering algorithms.